An Investigation of the Diurnal Evolution of Wind and Thermal Structure in Complex Terrain

The objective of this research is the structure and dynamics of the atmosphere in complex terrain, particularly selected valleys in the Mountain West. Both new and existing observations will be used to investigate the heat balance and its relationship to diurnal heating, the interaction between the valley atmosphere and other scales of motion, particularly how the former is related to the vertical transfer of heat, moisture and momentum. Professor McKee is well qualified to pursue this research, particularly the field measurements. Also, he has trained excellent students in the past. A successful, even empirical, understanding of valley air circulation could be crucial to problems in air pollution and other issues of air quality. I recommend support as a three year continuing grant at the revised budget level.